SBIR Phase II: Scanning Automultiscopic 3-D Visualization System

This Small Business Innovation Research (SBIR) Phase II project will develop a scanning automultiscopic 3-D visualization system. Current 3-D systems have very limited field-of-view or require intrusive headgear with head tracking to emulate look-around, and introduce inconsistencies between binocular convergence and eye accommodation. This project will develop a new class of 3-D displays based on proprietary liquid crystal scanner panels that time-sequentially project a large number of perspective images over a wide field-of-view into the view space in front of the display. The device will be a fully functioning full color, high resolution 3-D display system with large screen, large look-around field-of-view with many-perspective-image scanning at a flicker-free rate, using a high speed video projection system.

The proposed 3-D system will be used for visualization of multidimensional scientific and medical data, for 3-D design and simulation, training and education of government and civilian personnel in a collaborative 3-D virtual environment, and for telepresence and teleoperation